Solid Mechanics Contribution to Technological Advances in Paper Related Industries, Syracuse University Conference Center, Minnowbrook, NY July 27 thru 30, 1986

The purpose of this workshop is to identify key areas of mechanics research to improve paper technologies. The workshop will address the following specific areas of mechanics research for paper technologies: mechanical properties of paper products, environmental effects, such as temperature and humidity, modeling and simulation of the mechanical behavior and experimental paper mechanics. The workshop will identify key solid mechanics research issues and develop an appropriate strategy to guide the development of mechanics principles for technologies and processes to produce and utilize paper. A published report of recommendations will be prepared and submitted to NSF. This workshop provides an opportunity, for the first time, to bring together the paper industry with researchers in mechanics and to identify priority research issues to enhance paper technologies.